Development of a Digital Imaging Microscope

New methods for light microscopy will be developed. The focus will be on the digital imaging microscope, which can be used for the analysis of changes in molecular distribution underlying cell function. The spatial and temporal resolution of current camera and microscope systems will be improved by developing both new camera recording systems and a new high speed confocal microscope. Further improvements in image quality will be sought by the development of image restoration methods that incorporate a priori information about the biology to enhance the reversal of distortion and noise introduced by the imaging process. In order to facilitate subsequent interactive analysis, work will be carried out to develop image feature extraction systems capable of recognizing regular sub-cellular features of interest so that images may be simplified and principle features of interest presented for subsequent analysis. Finally, work will be carried out to develop interactive 3-D graphics display systems allowing the biologist to extract information in a quantitative yet flexible manner form such images. These projects will be carried out by a team consisting of biologists, computer scientists, mathematicians and physicists. The research is motivated by the need to better understand how molecular distribution in cells and tissues determines their function. While the development of tools address these issues will require the solution of problems that are physical and mathematical in nature, the ultimate benefit from these efforts will be in the area of biological research. The method will have an important impact on cell biology and neurobiology and ultimately on biomedical research as well.